A Collaborative Model for STEM Secondary Teacher Education

A "2+3" (B.S./M.A) dual degree program leading to a Masters of Arts with Teaching Certification for grades 6-12 for is being instituted for STEM majors. Two year scholarships for the fourth and fifth years are being awarded for the cost of attendance with a maximum annual award of $20,000. A minimum of eighteen scholars are receiving two-year scholarships over the five year project period. The IDEA (Instructional Development and Educational Assessment) Institute offers several programs aimed at early identification of potential teachers among STEM majors in the freshmen and sophomore years. These include 35 three-week internships for undergraduates to teach in summer science camps, opportunities to collaborate with teachers in public schools on small scale instructional projects in high needs schools, and opportunities to serve as peer instructors and group leaders.

During the junior year, students are admitted via early admission into the MAT program and are dual enrolled as undergraduates and graduate students. Monthly meetings and planning sessions are held to assist with preparation for the Noyce program and additional teaching experience is gained. In the fourth year the students complete the STEM degree requirements, enroll in initial education courses and undertake a teaching practicum with a master teacher. Student teaching, primarily in Detroit Public Schools, along with additional coursework, occurs in the final year.